MicroVAX for Medium Energy Experiments and Detector Development (Physics)

This grant provides funds for the purchase of a small computer system. The system will be used for data acquisition and analysis in nuclear physics experiments to be carried out at several accelerator facilities. The systems will be compatible with those in use at the accelerator laboratories.